Long-Period Oscillations in Convectively Adjusted Atmospheres

Recent Observational Studies have shown that the tropical atmosphere is very nearly neutral, rather than unstable, to moist convection. But virtually all representations of cumulus convection used in general circulation models permit large instability to build up and to be released episodically, resulting in spurious atmospheric wave modes. These may adversely affect climate simulations by such models. The PI will develop a representation of moist convection that does not allow instability to accumulate and test this against conventional schemes in the context of a simple numerical model of the equatorial atmosphere, with emphasis on the effects of these representations on long-period oscillations in the atmosphere. This research may improve climate simulations and projections.